SBIR Phase II: Novel Catalyst Substrate for the High and Low Temperature Water Gas Shift Reactor

This Small Business Innovation Research Phase II project seeks to develop a compact, lightweight, and low cost Microlith Water Gas Shift (WGS) reactor capable of rapid start-up, excellent transient response and high CO conversion efficiency with very low levels of methane formation. This technology offers a key low cost contribution to meeting objectives for efficiency and clean emissions. The Microlith based WGS reactor will be optimized by developing prototype reactor designs for fuel processor applications, and demonstrating predicted durability of up to 5000 hours.
Target customers and markets are fuel processor/fuel cell manufacturers developing and seeking to sell Proton Exchange Membrane (PEM) fuel cell products for stationary residential and distributed power, and for heavy duty vehicles in the short term, fuel processor/fuel cell manufacturers developing products for automotive markets in the long term and opportunistically, specialty chemical reactor applications (e.g. for hydrogen and syngas production and in ammonia synthesis) where the technology's size and performance.